NMR Studies of Field-Induced Phases and Phase Transitions

non-technical abstract

Superconductivity is probably the most widely known example of a
quantum mechanical phenomenon manifested at a macroscopic level.
The physical properties attributed to the superconducting state
are spectacular and include the flow of electrical current without
loss and the expulsion of magnetic flux from the interior of a
superconducting sample. These same properties make
superconductivity uniquely useful for many applications. Of
important scientific and technological importance is to understand
how superconductivity survives to high magnetic fields. Many years
ago, it was predicted that this is possible through a mechanism
producing a state of matter inhomogeneous on a microscopic level.
In this project, magnetic resonance techniques will be used to study
superconducting systems for which there is evidence for formation
of a new phase at high fields, including an exploration of their
physical properties, with the aim of identifying the inhomogeneous
phase and characterizing its properties. This work will be complemented
by investigations of new forms of field-induced magnetic states in
a class of magnetic insulators. Magnetic resonance is suitable for
this type of problem because it is sensitive to the environment
locally proximate to the nuclear spins being probed. Graduate
students will engineer and carry out the experimental program
under a range of extreme conditions, including very low
temperatures and high magnetic fields. Undergraduate students will
assist in the design and construction of specific components.

technical abstract

The nature of magnetic field-induced phases in superconductors and
quantum spin systems, stabilized by large magnetic fields, will be
studied using nuclear magnetic resonance techniques. In the case
of the superconductors, the materials are organic superconductors
with highly anisotropic superconducting properties which weakens
orbital pair-breaking. Evidence exists for distinct high-field
phases in each case, making them excellent candidates for
inhomogeneous superconductivity in a form predicted forty years
ago but not yet confirmed, and for which its properties remain
untested experimentally. Magnetic resonance accommodates easily
the necessary extreme conditions, and it is a local probe
sensitive to inhomogeneities. The quantum spin dimer system is an
S=1 system in which the dimers sit on a layered hexagonal lattice,
and for which thermodynamic measurements give evidence for
multiple phase transitions as the field is varied at temperatures
T<1K. Graduate students will design and carry out the experimental
program, and are assisted by undergraduates who will learn how to
engineer specific components. Evidence for inhomogeneous states
will be looked for, from which new quantum effects are expected to
emerge.